Collaborative Research: Multidimensional and Non-Homogeneous Harmonic Analysis: Bellman Functions, Perturbations of Normal Operators and Two Weight Estimates of Singular Integrals

Proposal Numbers: 0200713 and 0200584
PIs: Alexander Volberg, Fedor Nazarov, and Serguei Treil

ABSTRACT
Research will be conducted on non-homogeneous harmonic
analysis and on weighted norm inequalities with
matrix weights. In previous work by the PIs a technique
for estimating Calderon-Zygmund operators on spaces with
non-doubling measures was developed, and a novel
method of Bellman functions was introduced for problems
in Harmonic Analysis. These techniques will be applied to
solve several open problems in harmonic analysis and
operator theory and to investigate new directions,
which previously were deemed untractable because of the
lack of technical tools. Special attention will be paid
to uncovering new relations between Operator Theory,
Harmonic Analysis and Stochastic Control. Among
the main directions of the proposed research are:
- Spectral theory for perturbations of normal operators
and related problems in Harmonic Analysis: two weight
estimates for Hilbert Transform and embedding theorems for
the co-invariant subspaces.
- Non-homogeneous T(b) theorems and their applications to
generalizations of analytic capacity (electric intensity
capacity); the role of curvature in higher dimensions.
- Bellman function method in stochastic optimal control
and in harmonic analysis; functions with matrix arguments
and their applications to non-commutative problems.

Harmonic analysis investigates complex processes by
representing them as a sum of elementary ones (sinusoidal
waves, wavelets) with well understood behavior. A central
part of modern harmonic analysis deals with "singular
operators" of one type or another. Such operators are
pervasive in the scientific landscape: they turn up in
mathematical physics, probability, engineering, image
processing, etc. A new way to treat multivariate signals
will be discussed. The main difficulty here is that the
mathematical objects arising in such problems are
non-commutative: the product depends on the order of terms,
and that complicates things immensely. A new method based
on Bellman functions, which originating in the stochastic
optimal control, will be exploited in harmonic analysis.
One important direction of research is the spectral theory
for the perturbation of normal operators: results in this
direction would have important consequences in mathematical
physics. Another direction deals with non-commutative
harmonic analysis, i.e. with treating multivariate
signals.